Mathematical Sciences Computing Research Environments

The Department of Statistics at the University of Arizona will purchase UNIX workstations for research in the mathematical sciences. The equipment will be used for several research projects, including in particular: 1) Group Sequential Methods for Clinical Trials; 2) Spatial Spread of Epidemics and Their Control; 3) Critical Values for Markov Random Field Percolation.